Fully Depleted 300 Micron Thick Backside Illuminated CCDs with Extended Blue and Infrared Sensitivity

Abstract

This project will develop charge-coupled devices for astronomical imaging based on fully depleted 300 micrometer n-type silicon substrates using using a process developed by the Principal Investigator and his group. These devices will offer a number of advantages for astronomy including enhanced quantum efficiency in the blue and near-infrared spectral regions, absence of spectral "fringing," and lower cost.